Spring Topology and Dynamical Systems Conference 2006

Abstract

Award: DMS-0539088
Principal Investigator: Jerry E. Vaughan, Alexander Chigogidze

The Spring Topology and Dynamical Systems Conferences (STDC) have
been among the most successful and longest running annual
topology conferences in the nation, attracting an international
audience. The conference for 2006 will be the fortieth annual
meeting of STDC. The conference brings together mathematicians
and graduate students working in the two core areas, and covers
most areas of topology and of topological approaches to dynamical
systems. The conference fosters extensive interactions among
adjacent research areas and their applications. This contributes
greatly to the advancement of knowledge through communication of
recent results to a broad audience. Further impact comes from
publication of refereed papers from among those presented. The
conference emphasizes participation by graduate students, young
researchers, women and under represented minority groups. We
expect the conference to attract about 200 participants. The
conference activities feature hour plenary talks and half-hour
talks in two parallel sessions given by leading experts, and four
special sessions of contributed talks. The special sessions are
entitled: Continuum Theory, Dynamical Systems, General and
Set-Theoretic Topology, and Geometric Topology and Geometric
Group Theory. It is our intention that many of these plenary and
semi-plenary talks emphasize interaction of the research agendas
of two or more conference areas.

Topology is a diverse area of mathematics that grew out of
classical geometry and analysis. Its language and ideas pervade
much of modern mathematics. Topics in topology range from the
classification of surfaces in space to limits of sequences and
approximation of various mathematical objects. A dynamical system
is a physical setting together with rules for how the setting
changes or evolves over the course of time (for example,
population growth and fractals). The area of Dynamical Systems
studies ways to predict the long-term behavior of such
systems. The language and ideas of topology, which are heavily
used in the area of Dynamical Systems, are often used in many
areas of science such as physics, chemistry, and computer
science. Recently, topological ideas are finding application in
areas such as biology, psychology, sociology, medicine, and
robotics. The meeting of the fortieth annual STDC helps insure
the continued progress, growth and leadership of United States
researchers in topology and topological methods in Dynamical
Systems.